Planning Award Proposal for a Minorities Research Center of Excellence in Marine Sciences at the UMES

The Minority Research Centers of Excellence (MRCE) program was established in FY 1987 to provide substantial resources to upgrade the research capabilities of the strongest and most productive predominantly minority institutions. This planning grant project lays the foundation for a plan that will increase the institution's quality of research and research-related training. Specifically, support for this project will permit the establishment of an MRCE advisory committee of scientists and engineers, local leaders, and industrial representatives who will assist the institution in evaluating its current and future potential for performing meritorious research during the next five years. The University of Maryland - Eastern Shore will evaluate its marine science area with the goal of establishing a minority-based program in this field. This institution has the facilities and personnel to initate plans to study the feasibility of becoming a Minority Research Center of Excellence in the marine sciences. The Foundation has supported this project since minorities are grossly underrepresented in the marine sciences and this planning project can help overcome this problem.